Relaxor Ferroelectric and Proton Glass Systems

9520251 H. Schmidt The PI will investigate properties of partially disordered materials in particular of proton glass crystals and relaxor ferroelectrics. A broad range of measurements, such as dielectric spectroscopy from 1 mHz to 1 GHz, third-order dielectric permittivity, hysterisis loops, field heating and zero-field heating, and Brillouin scattering will be conducted at Montana State. Neutron scattering and diffraction will be carried out at Brookhaven National Laboratory. Phenomena to be investigated include smearing of the phase transition and clustering in relaxor ferroelectrics, nonergodic behavior, phase coexistence and proton tunneling in proton glasses. Proton glass results will be interpreted in terms of the bound charge semiconductor model and a phonon-assisted tunneling model. A diffusion-barrier-limited conductivity model and other appropriate models will be used to interpret the relaxor ferroelectric behavior. Monte Carlo simulations of proton glass behavior will also be performed. %%% Partially disordered crystalline materials, in which atoms of one type are replaced by those of another type, at random sites in the crystal will be investigated. The focus is on materials which show unusual response to electric fields. These include proton glasses, mixtures of ferroelectric crystals which polarize spontaneously and antiferroelectrics which consist of oppositely polarized interlocking parts. Relaxor ferroelectrics which have pronounced mechanical response to an electric field, and are beginning to find application as sensors and actuators will also be studied. The objective is to understand the fundamental properties, including the response to electromagnetic fields of very low to very high frequencies, the effects of heating and cooling, and the structure of these materials. Attempts will be made to improve upon existing conceptual and mathemat ical models of these materials. ***